Student Travel Support for ACM SIGCOMM 2004 Conference; Portland, OR; August 30-Sept. 3, 2004

This award will provide travel support for approximately eighteen graduate students to attend the 2004 ACM SIGCOMM Conference on Communications Architectures, Protocols and Applications to be held in Portland, OR, from August 30-September 3, 2004. The travel award will target graduate students, since attending conferences is an important part of their educational experience, and they often have limited funds. SIGCOMM is a highly esteemed international conference series that have endeavored to provide researchers and professionals with a cutting-edge forum to exchange and publish their work and ideas in computer networks and communications.